Automated DNA Sequencers for Basic Science Research

Three ABI 377 automated DNA sequencers are requested to fulfill the needs for DNA sequencing and genescan analyses at the basic sciences of the Johns Hopkins School of Medicine. The approximately 100 basic science laboratories at this institution are pursuing a wide range of research topics which depend heavily on these techniques. The range of ongoing projects span from developmental, cell and molecular biology, biochemistry and neurobiology. The proposed instruments would be managed by our non-profit DNA core facility, experienced in a variety of DNA analysis services, and would be available to the entire basic science community at cost. The Dean of the School of Medicine has committed co-funding for this project.